MGR Honorable Mention: Javier Alvarez

This special award will give Ph.D. student Javier Alvarez flexibility in pursuing his graduate studies and research initiation in Behavioral Ecology. This award will strengthen minority research participation in this area.//